Expedited Award For Novel Research - A Dynamical Systems Approach to Modelling Filter Design

The goal of the proposed research is to develop explicit geometric parametrizations of all n-dimensional modelling filters for a finite sequence of covariance data for a stationary stochastic process, in collaboration with Anders Lindquist in Stockholm.